Optimal Portfolio and Model Selection in Financial Markets

Pang, Jong-Shi
From: Jaksa Cvitanic [[email]]
Sent: Monday, July 02, 2001 4:33 AM
To: Pang, Jong-Shi
Subject: Re: your mail
Dear Dr. Pang,

I enclose here the abstract for my proposal.
Let me know , please, if it's O.K.
Sincerely,

Jaksa Cvitanic
------
Principal Investigator: JAKSA CVITANIC

Research is proposed on various aspects of the modern theory
of financial markets and related mathematical problems of
stochastic analysis, filtering and control. Issues that will
be studied involve:
(i) finding algorithms to compute the diffusion term of
the optimal wealth/hedging process, and related questions
about Martingale Representation Property and Malliavin
Calculus;
(ii) questions on maximizing Stochastic Differential
Utility and connections to Forward-Backward Stochastic
Differential Equations and problems of
incomplete/asymmetric information;
(iii) analytical and numerical methods for finding optimal
portfolio/consumption investment for retirement, in general
diffusion models;
(iv) theory of utility maximization/risk minimization in
general semimartingale models of markets with frictions;
(v) filtering and calibration of stochastic volatility models;
(vi) optimal design of executive compensation.
It is expected that tools from stochastic analysis and martingale
theory, convex duality theory, functional analysis, stochastic
control, Monte Carlo/simulation methods, will prove valuable
in the resolution of these questions, sometimes requiring
development of new tools, thus enhancing the understanding of
both the theoretical and applied aspects of these fields.

The optimal portfolio selection and consumption selection
is the theory that provides answers to the question of how
to allocate money between investing in different assets in
financial markets, and consuming it in order to buy various goods.
The theory has been developed in almost full generality by now.
However, it depends on a mathematical model of the markets,
and our ability to estimate the model parameters. For example,
correct pricing of complex financial contracts, such as exotic
options, depends on how well we can estimate the "volatility"
(riskiness) of the stock on which the option is written.
One of the problems we propose to study is how to do this
estimation by using observed stock prices. Similarly, the
problem of actually computing the corresponding optimal
trading strategies has not been resolved in general. The
algorithms that are commonly used today typically do not work well
in more complex and realistic models for financial markets, that
are becoming a standard, due to the increased sophistication of
market modelers. Thus, it is important to explore new analytical
and computational methods for finding optimal trading strategies,
some of which are suggested in this proposal. Similar methods are
suggested for exploring important problem of how a firm should
compensate its executive so that the resulting behavior of the
executive is optimal.